Upgrade of NMR Instrumentation for Undergraduate Education

Chemistry (12)
This project makes use of a multinuclear solid state nuclear magnetic resonance (NMR) spectrometer to enhance the undergraduate curriculum. Relevant experiments from chemistry journals are being adapted for use in the curriculum. Integration of multinuclear NMR spectroscopy in the inorganic chemistry laboratory exposes students to the properties of modern materials, as structural changes are demonstrated and synthesis is combined with modern spectroscopy as analytical tools. Undergraduate research using optical sensitivity enhancement techniques in the study of surfaces is nourished by the use of a multinuclear NMR spectrometer. The PI has extensive experience with NMR instrumentation and research. The equipment is made available to other universities and colleges in the area.